Explanations in Category Representation and Processing

How do people learn, revise, and reason about everyday biological,
physics, artifact, and social categories? The presence and structure of
causal knowledge about the interrelations among the properties associated
with novel, but plausible everyday categories will be studied in five behavioral
experiments. At the same time, in a factorial design, the statistical
structure of the properties associated with members of the categories will
be manipulated. The experimental manipulations vary the presence and
structure of this background information: participants will be tutored on
information organized into "common-cause," "common effect," "linear
chain," or "no inter-relationship" schemas. Then the effects of this
recently learned background information on learning, classification,
inductive inferences and similarity judgments will be measured. The
impact of information that disconfirms prior knowledge of these concepts
will also be studied, as a function of the participant's beliefs about
causal structure of the categories. The results will advance our
theoretical and practical knowledge about category representation and
category-based reasoning. The research addresses many philosophical and
psychological questions about everyday knowledge and reasoning. The
results are directly relevant to science education: How do we learn
general, background scientific information and then relate that knowledge
to specific scientific concepts.